Symposium 2000 on Adaptive Systems for Signal Processing, Communications and Control

Symposium 2000 on Adaptive Systems for Signal Processing, Communications and Control (AS-SPCC) sponsored by the Institute of Electrical and Electronics Engineers Canada (Region 7) is seeking a grant toward the cost of conference publications and to partially support graduate student participation. The symposium is the first International Symposium presenting work in Fundamentals of Adaptive and Learning Systems, Pattern Recognition, Adaptive Signal Processing, Radar Signal Processing, Wireless Communications, Adaptive Control, Nonlinear Dynamical Systems and Computational Intelligence in Finance. The Symposium is being held in Lake Louise, Alberta, Canada, October 1-4, 2000. The Symposium site is the Chateau Lake Louise.